Workshops on Data Management and Data Visualization Needs and Priorities for 21st Century CyberInfrastructure

This award provides support for two workshops of the ACCI Task Force on Data and Visualization. The funds will be used to help defray the costs of travel, hotel and per diem of the invited participants.